Creating Museum Exhibitions for Everyone: A Research Study Planning Grant

The Museum of Science will partner with four other informal science education institutions to plan a nationwide distributed research project that will explore universal access to informal learning of science, technology, engineering and mathematics (STEM) in museums. This planning project will determine domains of access-related research, establish a core set of advisors to assist with the development of the research agenda, coordinate the selection of topics for investigation and define areas where a shared research protocol might be appropriate for studies conducted at partner institutions. Research initially will be focused on visitors with disabilities who have traditionally been marginalized from many museum experiences.